RUI: Measuring Selection of Phenological Characters in Natural and Experimental Populations of Lythrum salicaria

O'Neil 9419467 This research will determine how the genetic correlation among traits may constrain the ability of a species to become optimally adapted. Specifically, working with the plant species, purple loosestrife, the researcher will manipulate the timing of flowering events to determine which characteristics, such as flowering duration, date of flowering initiation, and flowering synchrony, are genetically correlated. Preliminary results suggest that selection favors individuals with certain combinations of traits that are negatively correlated with other traits also favored by selection. Consequently, the optimal, or best, combination of traits for seed production may not be achievable by selection. The results of this research will provide plant breeders with information on how genetic correlations among traits may constrain the improvement of domesticated plants. For example, selecting for traits such as higher fruit yield, could lead to selecting for undesirable characters correlated with the traits of interest. This research will also provide basic ecological information on purple loosestrife, a pest species taking over wetlands, and provide information useful in controlling the spread of this species.